Dissertation Research: Quantitiative and Kinematic Variation in the Locomotion of African Pongids

Anthropologists have long recognized that the African apes, of all primates, are most similar to humans. A significant shared derived feature of these animals is their unique knuckle- walking locomotion. A major gap in our knowledge of such locomotor patterns includes the morphological correlates which would allow identification of such patterns from the fossil record. The primary objective of this research is to evaluate the functional relationship between kinematic patterns of knuckle-walking locomotion and the associated morphological features of the forelimb in adult and young African apes. This will be accomplished using two dimensional kinematic analysis, analysis of weight distribution between fore and hindlimbs using pressure sensitive paper, and quantitative analysis of morphological features of forelimb postcrania in interspecific and ontogenetic comparisons. Results from this research will document the allometric variation in movement patterns and associated knuckle-walking morphology. Such a study is essential to account for allometric effects in the reconstruction of locomotor behavior from skeletal material of fossil apes and hominids.